Geometric Tomography

ABSTRACT - DMS 0203527

Geometric tomography uses data concerning sections by planes and
projections on planes of geometric objects to obtain information
about these objects. The latter include general compact sets,
but often they are convex bodies, polytopes, star-shaped bodies,
or finite sets. One advantage of this setting is that it becomes
more probable that inverse problems have a unique solution.
Generally, the a priori knowledge that the unknown object is of
uniform density can be exploited to retrieve more information
than would otherwise be possible. This can lead to algorithms
that are more effective when few measurements are available, and
less sensitive to measurement errors or noise. Geometric
tomography has links to functional analysis, convex geometry,
Minkowski geometry, and combinatorics. The project will continue
the development of geometric tomography. New directions include
an extension of Lutwak's dual Brunn-Minkowski theory by the
introduction of moments of sets; work towards a coherent discrete
Brunn-Minkowski theory that applies to finite sets, with volume
replaced by cardinality; and an investigation into the
possibility of a Brunn-Minkowski theory for capacity. In related
applications, the plan is to consolidate links between geometric
tomography and a practical method called local stereology, and to
solve an inverse problem concerning finite sets with an
application to medical imaging. New discoveries about
intersection bodies are anticipated, with an application to the
reconstruction of star bodies from the volumes of their sections
through the origin. Also included is a program designed to
stimulate undergraduate research.

CAT scanners are machines that save lives daily. They take
X-rays in a number of different directions, and synthesize the
information to create an image of a two-dimensional section of
part of the body. The mathematics behind this process is called
computerized tomography. It is very successful, but not perfect;
the reconstructed image is only approximate, and to get a better
picture with the same procedure one has to take more X-rays,
causing greater expense and likelihood of side effects. In
geometric tomography, only homogeneous objects are allowed - the
density of the object is the same everywhere inside it. An
example from medicine would be a bone or a kidney. One can use
this information to find better reconstruction procedures. The
scope of geometric tomography is actually much wider. Any
measurement involving sections of a homogeneous object by lines
or planes or its shadows on lines or planes can be considered.
Because of this, it has many links to other areas, both in
mathematics (there is a large overlap with convex geometry, the
geometry of shapes without holes or dents) and outside. For
example, a new technique called local stereology depends on
measurements of planar sections of biological tissue; each section
passes through a fixed point, usually the nucleus of a cell, and
the measurements can be made optically rather than physically.
This project continues the development of several aspects of the
mathematics of geometric tomography. Also included is a program
designed to stimulate undergraduate research.